Marine Operations

The Louisiana State University Marine Consortium (LUMCON) proposes to supply technician support for NSF-funded research projects on the R/V Pelican, a 105 foot vessel that is owned by the University. Operation will be primarily in the Gulf of Mexico. Marine technicians are responsible for the operation of all shipboard instrumentation and data acquisition equipment during research cruises. They are also responsible for the maintenance of shipboard instrumentation and data systems. Funding for each year of this proposal will be negotiated separately and will depend on ship schedules.